Low Dimensional Geometry and Monopoles

PROPOSAL DMS-0305130
LOW-DIMENSIONAL GEOMETRY AND MONOPOLES
P.Is: Yann Rollin, Gang Tian

ABSTRACT

The aim of the proposed project is to study a manifold with boundary, and
some additional structure, in relation with the boundary values of the
structure. This generic framework is a very natural approach to many
important questions of differential geometry. Some typical cases are those
of contact structures fillable by symplectic forms, complex geometry and
Cauchy-Riemann boundary, Einstein geometry and conformal infinity. It is
interesting to study how deformation theory of the boundary induces
deformations of a filling. This problem is often related to some positive
frequency condition, which is of particular interest for physicists. This
will be used to study singular Yang-Mills connections of (a conjectural)
Donaldson theory on Calabi-Yau 3-manifolds. More generally, we look at the
picture of a moduli space on the manifold which projects on a
corresponding moduli space defined on the boundary. Whenever it can be
shown that the projection has a finite nonzero degree in some sense, we
obtain a powerfull tool to prove the existence of fillings. Another way to
tackle the questions of existence is to develop gluing theorems between
moduli spaces. Some applications of gluing for Seiberg-Witten equations
are already being developped thus giving new perspectives on contact
geometry.

A physical theory is defined by a configuration space, together with
objects (for example a metric) verifying particular equations.
The state of a physical system is constrained by its configuration on
the boundary of the space, or, at infinity. Therefore, it is a
natural question to ask wether a theory is rich or empty: is it
possible to find a physical system with a given behavior on the
boundary, and if so, do we have many solutions? In other words is the
system soft or rigid? Beyond the physical flavor, this approach, known
as a field theory, has deep implications in mathematics. First, it is
required to elaborate original tools in analysis, called moduli space
theories, that have their own beauty. Secondly, the method relates
very different problems. To illustrate that, we mention the following
situation: we consider a 3-dimensional space (it could be the
3-dimensional sphere) bounding a 4-dimensional space (like the ball
inside the sphere). Then, we look at knots on the boundary (they could
be strands of DNA). These knots can be thought of as the boundary of
a surface lying into the 4-dimensional space. Then, it can be shown
that there is a subtle relation between the knot theory in dimension 3
and the theory of surfaces lying in a 4-dimensional space.